An Advanced Hybrid Neural Network for Robot Dynamics Modeling

This project focuses on an investigation of advanced neural network methods of dynamics modeling of complex robotic systems for the purpose of achieving real time execution while maintaining the accuracy of the model. Both neural network approaches, the cerebellar model arithmetic computer type network, and the multi layered type network will be employed. Phase 1 efforts will attempt to answer 1) how is overall network configuration dependent on intended application, 2) which of the two commonly used neural networks is more appropriate for this application, 3) what is the optimal training methodology for the hybrid network, and 4) can a network trained for simulation purposes be used for controls, and vice versa?